Rigorous Micro-Macro Estimates For Low-Symmetry Polycrystals

Rigorous micro-macro estimates for low-symmetry polycrystals.

A fundamental problem in materials engineering is the computation of the
macroscopic behavior of polycrystalline aggregates from the microscopic
behavior of their constituent single-crystal grains and statistical
information about the grain size, shape and distribution. Exactly 50 years
since its introduction by G.I. Taylor, this is still being done by means of
the uniform strain-rate approximation. While appropriate for
high-symmetry/low-anisotropy crystals, such as FCC and BCC materials, the
Taylor approach is highly inaccurate for low-symmetry/high-anisotropy
polycrystals, such as HCP and ionic materials, especially when the number
of independent slip systems is deficient (less than five). In addition, it
is well known that the Taylor theory leads to texture predictions that are
significantly sharper than experimentally observed. To address these two
long-standing limitations of the Taylor model, we propose to implement a
rigorous nonlinear homogenization method (the so-called second-order
procedure) that has already been used with great success by the PI for
metal-matrix and other types of composites materials. The ultimate
objective is the development of constitutive models for implementation in
finite element simulations of deformation processing operations, fully
accounting for crystallographic and morphological texture evolution in
these materials. This research program will have an impact in the
development of improved manufacturing operations for light-weight,
high-strength structural alloys (e.g., titanium), which are of great
importance in many industries.